Fifth U.S.-Japan Workshop on Bridge Engineering: StructuralMonitoring, Safety and Nondestructive Evaluation; Tsukuba, Japan; May 1989

This project is the 5th Bridge Engineering Workshop conducted in conjunction with the Japanese counterparts under the auspices of the UJNR panel on Wind and Seismic Effects. This workshop will discuss research projects concerned with: evaluation of performance; structural monitoring; safety considerations and techniques for nondestructive evaluation of material properties and system behavior.